Biophotonics: DISCODE: Compact Disc Based Molecular Diagnostics

Burkart
0520868
The applicants have developed a compact disc-based method for qualitatative and quantitative analysis of molecular interactions called DISCODE. This technique may be used in any CD player found in contemporary computers and utilizes the existing laser to visualize molecular binding events. The applicants propose to develop a second-generation biological compact disc through modified fabrication and software engineering. This new version will utilize a modification of existing CD manufacturing technology to improve production. Intelligent software design is also proposed to provide imbedded multimedia instructions, rapid readout,
internal quality control, and the potential for networking structures. Finally, educational presentations to local public schools are proposed to provide a testbed for home-based acceptance.